Cache Memories and CPU Performance Architecture

Smith In the area of cache memories and CPU performance architecture the research efforts are directed at three items: 1. A study of the behavior of vector workloads and the extent to which vector machines can be expected to benefit from the use of cache memories. Iinitial results suggest that cache memories would work well. 2. A study of cache consistency in multiprocessors. Current research is directed at analyzing some multiprocessor traces in order to understand sharing behavior, and to evaluate the relative performance of a number of multiprocessor cache consistency algorithms. The project is generating further traces and study the effect of changes in the source code on sharing behavior. 3. The mMeasurement of the memory systems of a number of machines to determine the effect that those memory systems have on overall system performance.